Adhesive Bond Evaluation by Nondestructive Testing Techniques

The use of adhesive joints in the ccnstruction of various products is an attractive alternative to mechanical fasteners. The greatest problem in structural bonding is the inability to quantify the strength of the bonded assembly for design, quality control or maintenance. Current nondestructive evaluation methods have not been successful in solving this problem. This proposal is directed toward the evaluation of the feasibilty of utilizing multiple-variable NDE methods to provide fast, cost-effective, reliable determination of the strength of adhesive bonds through the use of the IMPACT SONIC WAVE SPECTRAL ANALYSIS method. The potential for applying this method is evidenced by its previous successful application to evaluation of wood and wood products. Variations in material type, bonded area, quality, aging, stress history, density and curing will be evaluated by SONIC WAVE NDE methods, combined with destructive testing. A model will be developed and verified which can predict bond strength within a target of + 15 percent. The Principal Investigator is well qualified to conduct the research. It is anticipated that the results will prove the validity of the proposed NDE approach to predict the strength and stiffness of an individual adhesive joint with a high level of reliability. Such results will indicate the direction to be taken with additional combinations of materials, adhesives and NDE equipment development. The results should provide the basis for a new design method for adhesives. An award is recommended for phase I.